CSR-PDOS: Reduce, Reuse, Recycle: Operating System Support for Server Appliance Consolidation

Organizations of all sizes have been purchasing an increasing number
of single-function computing appliances, such as firewalls, mail
filters, Web caches, etc. With the increasing power of commodity
processors and hardware, these appliances are often server-class PCs
with the operating system and software pre-configured to match the
hardware. While this approach provides some initial simplicity, its
long-term problems can include a proliferation of machines that
require individual OS updates, are harder to upgrade, and that cannot
benefit from server consolidation.

This research investigates operating system support for
appliance-style server development without complete hardware
isolation. Some of the mechanisms investigated involve
hardware-assisted virtual machines, "soft" virtual machines using OS
context support, fine-grained resource isolation and accounting, and
more explicit resource management interfaces. Such OS support reduces
the resource consumption footprints of each server, and provides
mechanisms to share common infrastructure across previously isolated
appliances. As a result, developers still retain the benefit of
pre-tuned OS and server configurations, without incurring the
maintenance overheads for the shared portions of the appliance.

This research will produce operating systems modifications to aid
consolidating server appliances. We will modify servers to use these
features, to demonstrate that they can reduce their resource
consumption, become more predictable, and also become easier to
program in the process. We will release the modified operating system
and demonstrate it with suitable servers that previously would have
been run on separate hardware platforms. As processors become faster,
and the number of cores increases, this research will simplify
computing infrastructure.